High Availability, Reliability, and False Sharing Reduction Techniques for Workstation Clusters

The goal of this project is to develop protocols for highly available Distributed Shared Memory (DSM) systems. Such protocol designs require handling multi-site failures and network partitions. This project is investigating issue related to highly available DSM from three different perspectives. First, its goal is to develop a stochastic model of highly available DSM to serve as the basis for further analytical work in this area. Second, a DSM simulator is planned to be developed to help analyze coherence protocols for high availability. Third, an experimental DSM system is being extended to support high availability based on a new protocol called Boundary Restricted Coherence Protocol (BR). Finally, this project aims at demonstrating the use of highly available DSM systems for a variety of applications such as scientific computing and database systems.